AMP: SOUTH CAROLINA ALLIANCE FOR MINORITY PARTICIPATION

The South Carolina Alliance for Minority Participation (SCAMP) is comprised of two major research universities (the University of South Carolina and Clemson University), four historically Black colleges (Benedict College, South Carolina State College, Voorhees College and Claflin College), one large community college (midlands Technical College), and an array of industrial partners. SCAMP will put in place programs at the undergraduate and graduate level to substantially increase the number of Blacks entering research careers in science, engineering, and mathematics. Minority undergraduates at the allied institutions will have available to them full and partial scholarships, intensive transitional mathematics worships prior to college, innovative and intensive educational programs, and interconnected mentoring network, opportunities for summer and academic year research, and possibilities for experience in local industry. Minority graduate students at the allied institutions will work in highly competitive research programs, develop industry mentors and associated, and have the opportunity to be role models and mentors for undergraduates. The progress and impact of these programs will be systematically and professionally evaluated on a statistical basis throughout the course of the project. The evaluations will be used to assess and improve the effectiveness of the various project components. The findings of the evaluation process and descriptions of innovative programs developed by the project will be published in appropriate journals for national and international dissemination and will comprise a Special Monograph Series published by the National Center for the Freshman Year Experience.